Distribution and Geodynamic Implications of Intermediate Wavelength Sea-Surface Height Undulations

Intermediate wavelength seasurface height (SSH) undulations over the Pacific plate appear to represent the platform of secondary mantle convection. Several aspects of these intermediate SSH undulations will be addressed, including: 1) analyze the SSH data in the Pacific to determine the presence and nature of the undulations; 2) verify the robustness of the phenomenon by establishing whether the SSh undulations exist on other plates; 3) test the possible mechanisms capable of causing these undulations (e.g. mantle convection).